Workshop on Data Management Technology for Molecular and Cell Biology

EIA- 0239993
H.V. Jagadish
University of Michigan

Title: Workshop on Data Management Technology for Molecular and Cell Biology

This workshop, to be held in February 2003, will define a research agenda for data management technology in support of bioinformatics applications. Specifically, it will be supporting basic and applied research in molecular and cell biology, genomics, functional genomics, structural biology, biochemistry, genetics, molecular phylogeny, pharmacology, pharmcogenomics, chemoinformatics, systems biology of the cell, and industrial microbiology. This workshop aims to look into novel approaches of database management to fit the needs of bioinformatics research applications, rather than continue to support conventional database technology.

The workshop will include substantial participation from bioinformatics researchers and developers, and biological and pharmaceutical researchers. Workshop topics will include but are not limited to the following: data integration: terminology management, seamless access, decision support; sequence data, shape data, graph and tree data, array and matrix data; similarity queries, pattern matching queries, recursive and graph queries; and workflow and experiment management.